Northern Science and Education

This research proposal, The Northern Science Education REU Site, by Dr. Sofia Perdikaris and Dr. Thomas McGovern, builds on a previous proposal funded through ASSP for 2000-2003. For the past three years the Northern Research and Education Program has involved inner city undergraduates, including underrepresented minority students and women (64% of total participants), and graduate students in a multi-discipline, northern field school and laboratory located in Iceland. The program includes intensive participation in archaeological field work and environmental science in Iceland in the summer followed by workshops, coursework, and internships at the American Museum of Natural History. The program is an exemplary REU site giving undergraduates a full compliment of science education and experience within which to develop their own projects and interests in science.